Integrating Regional Political Ecology, GIS, and Remote Sensing for Rural Reconstruction in the South African Lowveld

Weiner, Daniel West Virginia U. This project employs the digital technologies of geographic information systems (GIS) to carry out research on land and agrarian reform in South Africa's Eastern Transvaal Central Lowveld. The research employs a methodology whereby regional political ecology is integrated into the GIS production process. Land use, resource access, property rights, and local knowledge, as well as, other socio-economic and environmental data are analyzed within a common framework in order to assess current and future land use patterns as historical products of a set of production relations and socio-environmental histories. The research offers an innovative blending of technology and theory and enhances the analytical capabilities of regional political ecology. Within South Africa, the project will contribute to a deeper understanding of the rural reconstruction process by incorporating the differentiated knowledge of local communities into the GIS production process.